Student Travel Awards to the Sackler Colloquium: Brain Produces Mind by Modeling, May 1-3, 2019, Irvine, CA

This is a grant for student (undergrad, grad) and postdoc support for travel and attendance at the Sackler Colloquium May 2-3 2019 at the Beckman Center in Irvine CA. The title is: "The Brain Produces Mind by Modeling". Speakers include a large variety of world leaders in computational and behavioral modeling of the brain-mind connection. The colloquium will bring together various threads and approaches in neuroscience, cognitive science, and psychological science by focusing on computational modeling that attempts to bridge the gaps between these fields. It aims to present a coherent view of the brain as a model builder, using the model to maximize survival and utility in a complex world.